Doctoral Dissertation Research: Land and Wildlife Resource Management Strategies

This doctoral dissertation research investigates the variables mediating human-wildlife relationships. The investigators collect behavioral data to test how communities engage in wildlife resource management. In addition to training a graduate student in scientific methods of data collection and analysis, the data will be shared with community stakeholders in land and resource management.

The research findings contribute to our understanding of the connections between land, community, and wildlife resource management. The research makes significant contributions to economic and environmental anthropology and expands our understanding of societal impacts on the bioeconomy.